Logical Network Planning Conference

This award supports a conference to explore establishment of a National Transportation Research Information Clearinghouse to serve ten University Transportation Centers funded by the Department of Transportation. The conference is scheduled for May, 1989 in Washington, DC. The National Science Foundation's interest stems from the conference's planned exploration of efforts to establish a National Research Network as proposed in the report from the Office of Science and Technology Policy of October 1987, "A Research and Development Strategy for High Performance Computing". The conference will focus on how to upgrade existing facilities in support of a transition plan to the network through a cooperative effort among major government users.//